Studies in Reaction Theory (Physics)

This research is aimed at the development of a model of high energy hadronic collisions which provides a picture of its complete space-time structure. It is applied to relativistic heavy ion collisions and solved by computer simulations. A second part of this research program is the development of a new method for solving the quantum Liouville equation by computer simulation of a generalized stochastic process. Its most important application will be to the understanding of non- equilibrium many body systems.